Development of Effective Flow Analysis Systems for Logic Programs

This project addresses issues in the design and development of tools for automating the development of effective flow analysis systems for logic programs. The focus of this work is on investigating families of related analysis systems, with an emphasis on pragmatic aspects of implementations, such as precision and efficiency. The project will investigate the identification of families of related flow analysis applications, and develop algorithms for implementing them automatically in ways that are efficient in practice. This involves the investigation of automatic selection of data structures and machine representations of abstract domains; incorporation of efficient techniques for recursive query evaluation over finite domains; and using program transformation techniques for the generation of efficient flow analysis programs dynamically. It is hoped that this work will aid implementors of logic programming languages in the rapid development of efficient and effective flow analysis systems for such languages.